Conference: The 9th International Symposium on Riordan Arrays and Related Topics

This award supports participation in the 9th International Symposium on Riordan Arrays and Related Topics (9RART), scheduled to occur at Howard University in Washington, D.C. from June 3rd to June 5th. Notably, there is a significant historical tie to this event, as the original paper on the Riordan group was authored by four mathematicians from Howard University in 1991. Since then, eight international conferences have taken place, but this is the first to be held at Howard University. The primary objective of the symposium is to foster collaboration and networking among researchers interested in Riordan arrays and associated subjects. It seeks to catalyze fresh research directions, offer platforms for emerging scholars to showcase their work, and serve as an international nexus for academic exchange and cooperation. Additionally, it aims to broaden the community of mathematicians engaged in Riordan array research.

The symposium features two distinguished international scholars specializing in enumerative combinatorics, who deliver hour-long colloquium-style lectures on their respective fields of expertise. These lectures provide comprehensive overviews of current research trends and suggest potential avenues for future exploration. Furthermore, the event hosts four keynote speakers recognized for their contributions to Riordan arrays. Additionally, there are scheduled several 30-minute presentations and a poster session showcasing student research. The conference website is : https://riordanarray.org/.